Collaborative Research: Dynamic Response of the Ross Ice Shelf to Wave-induced Vibrations

Bromirski/1246151

This award supports a project intended to discover, through field observations and numerical simulations, how ocean wave-induced vibrations on ice shelves in general, and the Ross Ice Shelf (RIS), in particular, can be used (1) to infer spatial and temporal variability of ice shelf mechanical properties, (2) to infer bulk elastic properties from signal propagation characteristics, and (3) to determine whether the RIS response to infragravity (IG) wave forcing observed distant from the front propagates as stress waves from the front or is "locally" generated by IG wave energy penetrating the RIS cavity. The intellectual merit of the work is that ocean gravity waves are dynamic elements of the global ocean environment, affected by ocean warming and changes in ocean and atmospheric circulation patterns. Their evolution may thus drive changes in ice-shelf stability by both mechanical interactions, and potentially increased basal melting, which in turn feed back on sea level rise. Gravity wave-induced signal propagation across ice shelves depends on ice shelf and sub-shelf water cavity geometry (e.g. structure, thickness, crevasse density and orientation), as well as ice shelf physical properties. Emphasis will be placed on observation and modeling of the RIS response to IG wave forcing at periods from 75 to 300 s. Because IG waves are not appreciably damped by sea ice, seasonal monitoring will give insights into the year-round RIS response to this oceanographic forcing. The 3-year project will involve a 24-month period of continuous data collection spanning two annual cycles on the RIS. RIS ice-front array coverage overlaps with a synergistic Ross Sea Mantle Structure (RSMS) study, giving an expanded array beneficial for IG wave localization. The ice-shelf deployment will consist of sixteen stations equipped with broadband seismometers and barometers. Three seismic stations near the RIS front will provide reference response/forcing functions, and measure the variability of the response across the front. A linear seismic array orthogonal to the front will consist of three stations in-line with three RSMS stations. Passive seismic array monitoring will be used to determine the spatial and temporal distribution of ocean wave-induced signal sources along the front of the RIS and estimate ice shelf structure, with the high-density array used to monitor and localize fracture (icequake) activity. The broader impacts include providing baseline measurements to enable detection of ice-shelf changes over coming decades which will help scientists and policy-makers respond to the socio-environmental challenges of climate change and sea-level rise. A postdoctoral scholar in interdisciplinary Earth science will be involved throughout the course of the research. Students at Cuyamaca Community College, San Diego County, will develop and manage a web site for the project to be used as a teaching tool for earth science and oceanography classes, with development of an associated web site on waves for middle school students.